Nuclear, Particle, and Weak Interaction Physics of the Big Bang and Stellar Collapse

0099499
Fuller
Prof. Fuller proposes to continue his investigations on a wide range of problems involving neutrino physics, nuclear astrophysic sand cosmology. The PI has obtained seminal results which examine possible links between neutrino processes (masses, mixing and possible "sterile" neutrinos) and processes such as supernova explosions, r-process nucleosynthesis and big-bang nucleosynthesis. Current experiments suggest strongly that neutrinos have mass, and the PI's prior and proposed research has the potential to make fascinating new connections between these diverse areas of astrophysics and neutrino reactions.